Expanding SMET Higher Education for Native Americans in the 21st Century

Southwestern Indian Polytechnic Institute (SIPI) in partnership with the National Science
Foundation will increase the number of Native Americans matriculating into science,
mathematics, engineering and technology (SMET) baccalaureate programs and/or entering
the science and technology workforce. This will be accomplished through a comprehensive
program, irVision-21le which includes: a) curriculum development in calculus, physics and
chemistry; b) standards-based faculty development in problem-solving instructional
strategies and in the use of instructional technologies; c) two-year student experiences
in research; and, c) an expanded program for networking professionals leading to
industry certification to address the need for information technology workers in
Native American communities.

The project is designed to improve student-learning outcomes in calculus, physics, and
chemistry. Students will participate in inquiry-based learning strategies delivered through
a technology-enriched curriculum that is delivered/facilitated by a skilled faculty. Native
American undergraduates will also participate in meaningful research experiences that
will lead to improved diverse career opportunities, particularly in the SMET fields.
Students will learn and write about the research process, and develop presentations
for professional student forums. This is a learning experience that is rarely afforded
to two-year undergraduates. Finally to address the need for certified information
technology professionals in the U.S., and especially among Tribal Nations, SIPI will
expand its networking training program, allowing for industry certification.

Project staff in collaboration with faculty will develop an extensive evaluation
and assessment program. Staff will encourage and monitor student enrollment
and success in college courses that will prepare students for science, mathematics,
engineering and technology careers. Curricula products will be packaged and shared
with Native serving institutions, and evaluation and assessment results will be
electronically disseminated.